Physics in Collision Conference 2004

This proposal is a request for support to help cover the costs of organizing the 2004 meeting of the Physics in Collision Conference. It will take place from June 27-29, 2004 at Boston University. The funds will be used entirely to support graduate students and young scientists who otherwise could not afford to attend the meeting.